Geochemistry, Petrology, and Geologic Setting of the Precambrian Carajas and Urucum Iron-Formations, Brazil

This research proposal centers on two unique types of Precambrian iron-formations. The first, of Archean age, is in the Serra dos Carajas region of Brazil and is considered the largest Archean deposit of high-grade iron ore in the world. The second, is the iron and manganese region of Urucum which is of late Proterozoic age. These two iron- formations which are very different in age, in sedimentologic setting, and in extent, have been selected for detailed geologic, petrologic and geochemical studies (major elements, trace elements, REE, total organic carbon, and C isotopics where approximate). In cooperation with Professor Eduardo A. Ladeira. Results from these studies will allow for much improvement in the database for Precambrian iron-formations, and any conclusions as to their origin, for occurrences on a world-wide basis.